Shoot for the Moon|

The Thames Science Center collaborative with the resources of theSmithsonian Astrophysical Observatory, Wesleyan University andthe National Air and Space Museum will design and develop theproject, "Shoot For the Moon." This science education projectwill capitalize on the attraction, familiarity and proximity ofthe moon using it as a basis to enrich and supplement the eightand ninth grade physical science curriculum. Ten classroomunits, complimentary experiments and demonstrations will bedeveloped. "Moonwatch" software and audio visual materials,including an instructional videotape and a multi.imagepresentation will accompany the units. Sixteen teachers and museum educators will participate in thetraining, evaluation and testing as the project is integratedinto the curriculum of twelve schools and four museums. Theproject is designed to be replicated in schools and sciencecenters in different geographical locations nationally. The site for development and testing will be the Thames ScienceCenter, a regional science museum in eastern Connecticut. Thescience center offers formal science enrichment programs andtours for students and teacher professional development programsthroughout the region.